Physical Switching in Dynamical Systems

This research develops a generalized methodology for modeling, simulation and design of systems that intentionally or inherently involve switching phenomena. Physical switches are ubiquitous in physical and engineering problems, and their effects are realized in stick-slip friction, clutching processes, power electronic switching, hydraulic valving, and other critical processes. The research methodology integrates bond-graph representations and wave-scattering formalisms. The wave-scattering approach makes possible a formulation for a physical switching element that includes the ideal switch behavior as a special case. Further, integration of switching system representations with distributed- parameter elements and thermodynamic considerations is made possible as well. Because the scattering formulation can be integrated seamlessly with a bond graph approach, a methodology can be developed for representing the physical topology of a wide class of multi-energy domain systems. The results from this work will make a significant impact on computer-aided modeling, simulation, and design of a large class of systems and physical processes. Small-scale laboratory testing will be used to qualify and evaluate the approach and methods. In addition, a collaboration with the Center for Electromechanics at the University of Texas at Austin and the center's industrial and federal partners will make available experimental and research development resources for testing these techniques in high- performance switching controllers for traction motors. Ongoing collaboration with research personnel in the automotive industry provides another opportunity to tailor and assess the capability of the research results to industrially significant problems.